AF: Large: Collaborative Research: Exploiting Duality between Algorithms and Complexity

Meta-algorithms are algorithms that take other algorithms as input.
Meta-algorithms are important in a variety of applications, from
minimizing circuits in VLSI to verifying hardware and software to
machine learning. Lower bound proofs show that computational problems
are difficult in the sense of requiring a prohibitive
amount of time, memory, or other resource to solve.
This is particularly important in the context of cryptography,
where it is vital to ensure that no feasible adversary can break
a code. Surprisingly, recent research by the PIs and others
shows that designing meta-algorithms is, in a formal sense,
equivalent to proving lower bounds. In other words, one can prove a
negative (the non-existence of a small circuit to solve a problem) by
a positive (devising a new meta-algorithm). This was the key to a
breakthrough by PI Williams, proving lower bounds on constant
depth circuits with modular arithmetic gates.

The proposed research will utilize this connection both to
design new meta-algorithms and to prove new lower bounds.
A primary focus will be on meta-algorithms for
deciding if a given algorithm is 'trivial' or not, such as algorithms
for the Boolean satisfiability problem. The proposed research will devise new
algorithms that improve over exhaustive search for many variants
of satisfiability. On the other hand, it will also explore
complexity-theoretic limitations on how much improvement is
possible, using reductions and lower bounds for restricted
models. Satisfiability will provide a starting point for a more
general understanding of the exact complexities of other NP-complete
problems such as the traveling salesman problem and k-colorability.
The proposal addresses both worst-case performance and the use
of fast algorithms as heuristics for solving this problem.

This exploration will be mainly mathematical. However, when
new algorithms and heuristics are developed, they will be
implemented and the resulting software made widely available.
This research will be incorporated in courses taught by
the PI's, at both graduate and undergraduate levels.
Both graduate and undergraduate students will perform research
as part of the project.